Acquisition Services Directorate

Expert acquisition support services to supplement and to aid NSF OIG efforts in the achievement of it's congressionally mandated programs. This Interagency Agreement (IA) will enable NSF OIG to fund and contract with the Acquisition Services Directorate for the provision of these services.